A Constraint-Based Engineering Mechanics Application Built on a Symbolic Mathematics System

9223482 Todd A significant commercial opportunity lies in providing software systems which take real world engineering problems, expressed in engineering rather than mathematical terms, and convert these problems into systems of mathematical equations. These equations may then be analyzed using the symbolic and numerical facilities of a general purpose mathematics package. This approach separates application specific engineering knowledge from the application independent capabilities of general purpose mathematical software. In the last four years, Variational Geometry has emerged as a natural and powerful language for the expression of mechanical engineering problems; particularly, problems in the realm of engineering mechanics. The opportunity to be addressed by this project is to develop an engineering mechanics package which will serve to convert a variational geometry based description of the engineering problem into a symbolic mathematical description, which may then be analyzed inside a general purpose mathematical package. The Phase II research will develop a prototype system capable of accepting an engineering problem phrased in terms of Variational Geometry and outputting a symbolic mathematics description of the problem. ***